REG: I/R Microscope

The award supports the purchase of an infrared microscope, video camera, recorder and a sectioning saw equipment dedicated to support measurement of delamination profiles in silicon/polymer/metal microelectronic structures, measurement of stresses at bimaterial corners, and measurement of residual stresses in the silicon component of encapsulated microelectronic devices.